University of Washington - School of Oceanography for R/V Thomas G. Thompson and R/V Rachel Carson Shipboard Scientific Support Equipment (SSSE)

Requests are made by the University of Washington for Shipboard Scientific Support Equipment (SSSE) on R/V Thompson, a 274-foot general purpose, global class research vessel, and R/V Rachael Carson, a newly outfitted 72-foot coastal research vessel, both operated as part of the US Academic Research Fleet (ARF). In 2020, Thompson, in a COVID-shortened season, completed 202 funded days with 131 (65%) of them for NSF. For 2021, the vessel is scheduled for 277 total days with 224 (80%) days for NSF. Carson had 41 days in 2020 with 1 NSF day. For 2021, there are 71 days scheduled, 32 (45%) of which are for NSF.

With this proposal, UW provides technical descriptions and rationale for the acquisition of the following Shipboard Scientific Support Equipment:

Purchase and Install Boat Davit on R/V Rachel Carson $51,807
Design and Install ADCP Well in Hull of R/V Rachel Carson $26,630
Purchase Wide Throat Metered Block for R/V Rachel Carson $18,717
Replace starboard aft main deck crane on R/V Thompson $252,500
$349,654

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.